Conference: General Relativity and Shock Wave Theory

This award furnishes travel support for participants in the Conference on General Relativity and Shock Wave Theory, held April 29 to May 1, 2006 at Stanford University. The primary theme of the conference is research in mathematical general relativity at the interface between differential geometry and fluid mechanics. Significant funding is allocated to support participation of students, postdoctoral fellows, and junior faculty.

This meeting provides an opportunity for interaction among leading experts and junior researchers working at the interface between important related areas of mathematics. The conference will provide a valuable opportunity for postdocs and students to broaden their understanding and to learn about open problems in these areas.